Protein Purification Using Novel Methods for Buffer Focusing Chromatography

ABSTRACT

This grant is awarded through the Separations and Purification program sub-element of the Interfacial, Transport and Separations program of the Chemical and Transport Systems Division. The principal investigator is Dr. Douglas Frey at the University of Maryland Baltimore County. The proposed research concerns the study of techniques to efficiently purify proteins without exposing them to pH ranges where they might denature or precipitate. These methods are often referred to as buffer focusing chromatography or chromatofocusing. They are not currently used on a large scale because of a lack of understanding amongst practitioners about how retained pH gradients, having a high buffering capacity, can be formed at low ionic strenghts using low cost buffering species. The proposed research suggests various approaches for advancing the state of knowledge in this area and encompasses a good blend of theoretical studies, experimental work and modeling of the data.